Eulemur as a Primate Model for Oxytocin System Evolution and Function

This award was provided as part of NSF's Social, Behavioral and Economic Sciences Postdoctoral Research Fellowships (SPRF) program. The goal of the SPRF program is to prepare promising, early career doctoral-level scientists for scientific careers in academia, industry or private sector, and government. SPRF awards involve two years of training under the sponsorship of established scientists and encourage Postdoctoral Fellows to perform independent research. NSF seeks to promote the participation of scientists from all segments of the scientific community, including those from underrepresented groups, in its research programs and activities; the postdoctoral period is considered to be an important level of professional development in attaining this goal. Each Postdoctoral Fellow must address important scientific questions that advance their respective disciplinary fields. Under the sponsorship of Dr. Christine Drea at Duke University, this postdoctoral fellowship award supports an early career scientist investigating the role of oxytocin (OT) in primate behavior. This project uses an animal model, a genus of Malagasy lemurs housed at the Duke Lemur Center. Species within this genus (Eulemur) vary considerably in their social systems, including the degree of female dominance and existence of monogamous mating bonds. Thus, Eulemur is a natural experiment that permits an investigation of how OT is involved in the complex nature of pair bonds. Insights from this project will inform the literature across several scientific fields, including zoology, evolutionary biology, and neuroscience. More broadly, findings from this project have the potential to inform efforts to harness OT for therapeutic purposes.

Functional significance of the neuropeptide oxytocin (OT) has become a topic of debate within social endocrinology. Evolutionary biologists have argued that ancestral functions for OT were co-opted in some species to mediate formation and maintenance of other social bonds. A large literature supports and espouses OT's potential as a biological foundation for the interdependent relationships, including monogamous pair-bonds, characteristic of highly social species. Psychological studies report a number of both prosocial and anti-social effects or correlates of OT. Functional interpretations are often derived from model systems of a single species. Evolutionary biologists argue that model systems do not sufficiently represent the diversity of mammalian socio-ecologies. This project expands the current state of knowledge in behavioral OT research by collecting behavioral, hormonal, and anatomical data on the OT system in a unique animal model - Eulemur, a genus of group-living primates. The combination of close genetic relatedness and divergent social behavior within the Eulemur genus acts as a natural experiment. Seminal studies revealed that inter-species differences in structure and function of the OT system are essential to understanding the biological bases of mating system variation.